Orthodoxy and Innovation in Science

Why do scientists accept or reject new theories? The primary goal of this research project is to determine the various background variables that influence attitudes toward innovation in science. Professor Sulloway's research design, which is multivariate and epidemiological in nature, encompasses 80 variables and nearly 3000 participants in 28 highly diverse scientific controversies. Based on preliminary research and multivariate modeling techniques, the most significant predictors of attitudes toward scientific innovation include (in order of importance): birth order, which mediates differential identification with parents and authority; time elapsed since the announcement of the theory; age; political and religious attitudes; personal contact with the originator of the new theory; and national differences. Professor Sulloway is examining three areas of further research. First, he is refining these statistical models by obtaining questionnaire data on the nature of each scientific controversy and the theoretical changes that ensued. His questions are also aimed at testing various assumptions regarding the nature of scientific change that have preoccupied philosophers of science. Second, he is developing specific models for individual debates that will allow the rigorous testing of historical hypotheses. Lastly, he is completing data collection for this project.